MRI: Acquisition of an Itanium Cluster for Grid Computing

EIA-0320895
Henry J. Neeman; Kelvin K. Droegemeier; Kyran D. Mish; Dimitrios V. Papavassiliou; Patrick L. Skubic
University of Oklahoma

MRI: Acquisition of an Itanium Cluster for Grid Computing

This proposal from an EPCoR state, seeking funding for an Itanium based grid, aims at integrating the facility and the research in various computational fields into TeraGrid and contemplated Cyber-infrastructure. On-going projects in meteorology, high-energy physics, earthquake, chemical and aerospace engineering, will use the resource for design, development, and debugging Grid-enabled software. These include:
Modeling Environment for Atmospheric Discovery (MEAD)
Linked Environments for Atmospheric Discovery (LEAD)
Development of Data Grid Tools
Network for Earthquake Engineering Simulation (NEES) Computational Server
Development of a Grid-based Problem Solving Environment for Multiscale, Multiphase Flow through Porous Media in Hydrocarbon Reservoir Simulation, and
Grid-based Design Environment for Preliminary Aircraft Design and Optimization.
The MEAD collaboration develops and adapts cyber-infrastructure to enable simulation, data mining/ machine learning, and visualization of hurricanes and storms using TeraGrid. The LEAD project develops Grid-enabled resources for real time (RT) weather forecasting and related research. The High Energy Physics Data Grid Tools project develops tools for dynamic workspaces for scientific analysis communities creating dynamic workspaces for their projects and complementary collaboratory tools for RT interactive sharing of workspaces. The NEESgrid project links earthquake researchers across the nation with leading-edge computing resources, allowing geographically distributed collaboration. The HiMUST project develops a problem solving environment for multiscale, multiphase, multiphysics flow of porous media. The Grid-PRADO project provides Grid-enabled aircraft design through massively parallel searching of design parameter spaces for design engineers.
The project involves participation of two minority institutions, Langston and Howard Universities.